Reaction with Exotic Nuclei: Toward a Microscopic Theory

Nuclei with a large neutron or proton excess can be
produced in accelerators and exhibit exotic properties,
some of which are crucial for Astrophysics.
The properties of these unstable nuclei can be extracted through
reactions with stable targets. It is then clear that, in order
to determine the structure of these nuclei, one needs reliable
reaction models. These models should take into account, from
the start, a realistic picture of the exotic nucleus. One of the
most important aspects of these unstable nuclei is the fact
that they break up very easily.

Several simplifications are usually performed in nuclear reaction models.
A questionable one is the assumption that the exotic nucleus (projectile)
behaves are two inert fragments, bound together, which can easily breakup.
In this project we will develop a new reaction model that goes beyond
this approximation. This new model will incorporate more detail in the
description of the projectile, allowing all its parts to dynamically
feel the influence of the target, as a step toward a microscopic
treatment of the reaction.